Mathematical Sciences: Project in Mathematical Modeling in Population Biology

An REU site project will be conducted under this award focusing on problems of mathematical modeling in the area of population biology. Students will be introduced to techniques of dynamical systems theory, scientific computing and statistical methods applied to problems of current interest in mathematical biology. Specific activities include studies of the dynamics of simple interacting populations, including predator-prey systems and evolutionarily stable strategies. Several systems such as those studied in laboratory chemostats will be introduced. Work on the dynamics of single and interacting age-structured populations, including simple host-parasite systems, will also be carried out. Other students will be involved with epidemiological models for animal and human disease transmission. Based on basic assumptions about the transmission of infectious disease agents in a homogeneous population, SIR (Susceptible-Infected-Removed) models will be developed. A picture of the global behavior of the resulting nonlinear ordinary differential equations systems will be built up using phase space analysis. Work will also be done on resource management and optimal harvesting strategies. The main object of this research area is to develop continuous population models for a single species under different harvesting strategies. At the beginning, a study of the species in the absence of harvesting will be made to show how one attempts to find a model that is biologically realistic and mathematically tractable. Then various harvesting strategies will be introduced into the model and tested. The projects will be selected to involve the students in formulating an original mathematical model or modifying an existing one, doing qualitative analysis and statistical estimation of the parameters where possible, devising a numerical scheme and performing the numerical simulations. Understanding the numerical results in the framework of the model and modifying the model where necessary will follow.